A Ceramic Composite Cutting Tool Insert for Increased Productivity Ultrahigh-Speed Machining

The objective of this SBIR Phase I proposal is to demonstrate the feasibility of alloying an alumina matrix coupled with utilizing titanium diboride whiskers with or without SiC whiskers to produce a composite cutting tool that is optimized in regard to thermal conductivity, thermal shock resistance, hardness, strength, coefficient of friction, and chemical inertness. The purpose is to produce an optimized ceramic composite cutting tool insert that will permit increased speed and metal removal rate to effect a significant increased machining productivity at an overall reduced cost. A statistical experimental program will be employed to optimize the ceramic composite cutting tool insert. Application is expected to be on machining of nickel alloys, cast iron, and other metal alloys. If this work is successful, a Phase II proposal will be submitted.